Physics of Excited Atoms

9423001 Koch The goal of the project is to study the interactions of atoms with strong, time-dependent, externally applied fields in order to understand the connections between quantum mechanical and classical, nonlinear dynamics. These experimental studies provide a unique window for observing the manner in which the details of quantum spectroscopic measurements may be connected to classical chaos. ***